Cognitive Neuroscience Across the Lifespan

This proposal focuses on the development of a conference on Cognitive Neuroscience Across the Lifespan. The conference will be a satellite to the Cognitive Neuroscience Meeting in April 2002. The primary objective is to push development in this emerging area with the ultimate goal of understanding how to maintain lifelong cognitive function, and how to maintain a healthy mind. The conference will focus on understanding the link between overt cognitive behaviors and underlying neural functions across the lifespan. The conference is designed to bring together for the first time, leading researchers in the cognitive neuroscience of aging, to highlight emerging issues, methodological challenges, and the small body of existing research in this domain, and to foster the exchange of ideas.